REU: Summer Research Program at Connecticut College

This is a Research Experiences for Undergraduates project. It will provide research experiences for eight students at Connecticut College. Students will participate in projects involving estuarine biology, terrestrial ecology, genetics and molecular biology.